Scattering and spectral theory for manifolds

Abstract

Award: DMS-0504729
Principal Investigator: Harold Donnelly

The principal investigator plans to study three separate topics:
i) Lower bounds on the counting function for resonances, ii)
Quantum unique ergodicity, iii) Behavior of eigenfunctions near
the ideal boundary of hyperbolic space.There is a large
discrepancy between the known upper and lower bounds for the
resonance counting function of Euclidean space with odd
dimension.It has been conjectured that there is a general lower
bound which is comparable to the known upper bound.The proposal
is to construct counterexamples which falsify the
conjecture.Quantum unique ergodicity concerns concentration of
eigenfunctions on manifolds with ergodic geodesic flow.In earlier
work,manifolds were constructed where quantum unique ergodicity
is violated for packets of eigenfunctions.It is now proposed to
construct counterexamples to quantum unique ergodicity for
individual eigenfunctions.The proposed examples would be
perturbations of manifolds with rotational symmetry,in the
exceptional cases where KAM theory fails to provide invariant
tori for the perturbed system.The Laplacian of hyperbolic space
has absolutely continuous spectrum.If one alters the metric on a
compact subset there may exist eigenfunctions whose eigenvalues
lie below the bottom of the essential spectrum.The goal is to
understand the nodal set of these eigenfunctions near the ideal
boundary at infinity.

Resonances are mathematical models for physical phenomena related
to atomic spectra.In general,states do not exist forever if
unperturbed and resonances correspond to decaying states which
oscillate.Mathematicians seek to understand quantum mechanics by
analogy with classical mechanics.If the classical motion is
chaotic,one expects the probability distribution of the quantum
particle to be dispersed.Exceptions to this pattern,where the
particle concentrates,are of particular interest.The nodal set of
a quantum particle is the stationary set for the associated wave
motion.Its distribution and shape are of basic importance.